NSF Young Investigator Award

Dr. Marisa Carrasco-Queijeiro began her five-year NYI award at Wesleyan University in FY 1993. The abstract is under the original award # SBR-9357986. Dr. Carrasco-Queijeiro has moved to New York University, and will finish the last three years of her award there. The original abstract is still valid.